The Procedural Management of Consensus Process, and Quantitative Decisions by Small Groups

9309405 Davis This research concerns the effectiveness of decision making by small groups such as committees and panels. Enhancing the productivity of groups often involves encouraging consensus, promoting discussion, publicizing member views, etc. The validity and efficiency of such measures have rarely been studied and unanticipated side-effects and not been considered. The empirical research in this project involves an orderly assessment of the influence of various procedural mechanisms and how they effect the final outcomes or decisions of the group. The decisions at issue will be ordinary judgments similar to those expected of citizens serving on a civil jury or schoolboard. Although the experimental results should assist in achieving of long-term goal of improving group efficiency and accuracy, a more basic research issue is how and why the various procedural mechanisms work as they do. A formal model is being developed to predict group consensus on quantitative judgments. The data from the experiments will be used to test the model and guide its further development. The model should provide additional insight into group decision processes and its enhancement. ***